A Thermodynamically Self-Consistent Examination Phase Changes and Dynamic Mantle Layering in a Temperature- Dependent, Compressible Fund

9316120 King The current generation of convection calculations indicate that including the effect of the spinel to perovskite plus magnesiowustite phase change in the convective flow calculation causes complex time-dependent flow patterns in the Rayleigh number range appropriate to the Earth. This so-called "dynamic layering" phenomenon will be investigated in a 2-D Cartesian geometry with a compressible finite element code. The PI will compare the simple thermodynamical formulation used in previous studies with a thermodynamically self-consistent formulation. He will then investigate the effect of temperature-dependent viscosity with plate-like and slab-like features in the compressible, phase change system. He will evaluate the results using radial mass flux functions and radial correlation functions. ****